A Laboratory for Research on Model-Based Computer Vision

Vision and robotics equipment will be provided for researchers at the University of Wyoming for research in the Department of Computer Science. This equipment is provided under the Instrumentation Grants for Research in Computer and Information Science and Engineering program. The research for which the equipment is to be used will be in the areas of design principles for computer vision based spatial reasoning in structured environments, Medical image processing for analyzing drug induced defects in embryos, image processing methods for determining velocity fields for fluid flow and for modeling of electron distribution in the plasma of laser-induced breakdown of gases for hi- voltage switching, and the decomposition of two and three-dimensional patterns using computational geometry methods.